Metric embeddings, approximation and combinatorial algorithms.

ABSTRACT
0515304
Satish B. Rao
University of California - Berkeley

In this project, the investigator and graduate researchers at Berkeley will further study metrics and approximation algorithms. In addition, he will work on exact algorithms for combinatorial algorithms.

In terms of intellectual merit this work addresses problems that have been studied across operations research, mathematics, and computer science for decades. The investigator has previously made significant progress on these problems and has previously made contributions that have made important connections between theoretical computer science and functional analysis. The problems the investigator is pursuing
are central problems in the field.